RUI: Competition Effects and the Absorption Potential in Mass 40-80 Nuclei

This grant supports research in experimental nuclear physics by a faculty member and undergraduate students from Eastern Kentucky University. The research will involve precision measurements of low-energy proton-induced reactions, primarily to determine how the variation with mass of the optical model absorption is influenced by nuclear structure. The experiments will be conducted using the University of Kentucky Van de Graaff accelerator.